Research Experiences for Undergraduates in Physics

This grant will continue support for a Research Experiences for Undergraduates Site in the Department of Physics at the University of Massachusetts-Lowell. Students will be involved in research projects that cover a wide range of topics in the fields of nuclear physics, accelerator-based physics, reactor-based physics, solid-state optics, photonics and optoelectronics, submillimeter-wave physics, advanced materials physics, atomic physics and theoretical physics. At the end of the program each student will give a half-hour presentation to the whole group which includes all the REU participants, the research advisors, and other interested members of the faculty.